A User-Centered Database from the Computer Science Literature

This project involves developing and testing a hypermedia database based on the computer science literature. Human- computer interaction and information storage and retrieval research are being applied to develop a new paradigm of user- centered database development and access. Local testing is being done by faculty and students at VPI&SU, with additional testing over the Internet. Computer science literature provided by the Association for Computing Machinery is being transformed to better serve the needs of a wide spectrum of computing practitioners. Based on interviews with computer professionals and analysis of existing publications, "objects" used in computing are being identified so that a tailored object- oriented database including algorithms, algorithm descriptions, bibliographic records, full texts of articles, reviews, data, page images, and related multimedia can be stored and appropriately linked for searching and browsing. New minimal perfect hashing and graph partitioning algorithms provide efficient access to the large, distributed graph of objects. As a result of this project, it will be easier to locate and manipulate information in the resulting electronic archive, which will facilitate reading, writing, annotating, and sharing. Software and methodology used in this project will aid other fields as they develop sophisticated electronic archives with multimedia capabilities.